Data Mining, Statistical Learning, and Data Visualization for Complex Data

Title: Data Mining, Statistical Learning, and Data Visualization for
Complex Data

Principal Investigator: William S. Cleveland, Shanti S. Gupta Professor of
Statistics and Courtesy Professor of Computer Science, Purdue University

This project studies the building of a computational environment for six
research projects that are bound together by the need to model data that
are complex --- large data sets with complex patterns and dependencies
that require require complex models and algorithms. Three of the
projects have as their goal data analysis: using methods of data mining,
statistical learning, and data visualization to study the problems in a
subject matter area through the analysis of complex data sets. The other
three have as their goal new methods: the development of new approaches
and tools of data mining, statistical learning, and data visualization
for complex data. For methods to work best for complex data, they must
be invented with the challenges of complex data in mind.

The environment needed for the analysis of complex data and the invention
of new methods for them is quite different than that of grid computing
environments, which have received substantial attention in the past. Data
analysis requires (1) an interactive environment with a good language for
programming with data that provides rapid prototyping of new methods,
and (2) a hardware environment that supports interactive computing with large
amounts of memory and rapid disk access to large databases. A goal of the
project to study how to design such an environment and minimize cost.